III: Small: A Scalable Search Tool for Interesting Patterns in Scientific Data

Across many scientific disciplines, the availability of very large
amounts of data is creating a paradigm shift. The goal of this project
is to develop Scolopax, a tool for finding interesting patterns in
classification and prediction models trained on large high-dimensional
data. These patterns can capture previously unknown relationships
between the variables of a complex process, hence are essential for
exploratory analysis and scientific discovery.

This project explores several research directions to lay the
foundations for Scolopax: (1) Design of a new query language that can
express all common pattern search preferences. (2) Algorithms for
learning a query so that even non-technical users can formulate
non-trivial queries through an interactive process. (3) New rewrite
rules and efficient data management approaches to automatically
transform queries into fast implementations on a cluster or Cloud. (4)
Design of new semi-parametric data mining techniques that are amenable
to scalable training, evaluation, and pattern confidence computation.

User-friendly query writing functionality makes Scolopax accessible to
scientists and citizen scientists alike. Its planned deployment
through popular Web sites, e.g., those hosted by the Cornell Lab of
Ornithology, has the potential to enable new scientific
discoveries. By letting citizen scientists not only contribute data,
but also make their own discoveries using the data, Scolopax also
serves as an important enabler and motivator for outreach programs and
greater involvement of citizen scientists. For further information see
the project web site at the URL:
http://www.ccs.neu.edu/home/mirek/Projects/Scolopax